Optimization of Space Usage

While most optimizing compilers attempt to minimize the execution time or the size of programs, little has been attempted in the area of minimization of the storage needed by programs during execution. This project contains a framework for reasoning about data size in compiled programs, and the investigator intends to formulate some space-saving optimizations and implement them in Standard ML of New Jersey.